Computational Methods and Function Theory Conference, 2001

Abstract:

The grant will provide partial funding for a USA
delegation consisting of young Ph.D's and graduate students
to participate in the mathematics conference entitled
"Computational Methods and Function Theory '01, which
will take place during the period June 25-29, 2001 in
Aveiro Portugal and will focus on the interactions between
certain areas of pure and applied mathematics. The grant will
also provide travel funding for several outstanding researchers from
eastern Europe.

The grant will provide funding for a USA delegation of
of young Ph.D's as well as graduate students to participate
in a conference that will emphasize various aspects of the interaction
between scientific computations and the area of mathematics
known as function theory. The conference will also foster contacts
between scientists from diverse cultures. For this purpose,
the funding provided will also help support some eastern European
participants.